Partnerships for Innovation: A Center of Excellence in Regenerative Biology

0093092
Chernoff

This award is to Indiana University Purdue University-Indianapolis to support the activity described below for 36 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners include Indiana University Purdue University - Indianapolis; Indiana University; Terre Haute Center for Medical Partner Organizations; Indiana University School of Medicine; Eli Lilly & Company; Indiana 21st Century Fund for Research and Technology; Indiana Business Modernization and Technology Corporation.

Proposed Activities
The activities for this award include innovative research in regenerative biology; technology transfer leading to development of therapies; training the workforce for regenerative biology.

Proposed Innovation
The goals of this innovation are research on regenerative biology to understand the regeneration process and identify proteins of therapeutic value for healing, and technology transfer to private companies for healthcare delivery.

Potential Economic Impact
The potential economic impacts are creation of an estimated 7000 new jobs over the next 10 years from the partner companies alone (10% of these will be in Indiana), and increased participation of minorities in the health care industry.

Potential Societal Impact
The development of therapies for injured and degenerating tissues will have medical and health benefits to society beyond anything known today. The plan also includes strong involvement of minorities in the workforce training programs with subsequent participation in the anticipated expanded healthcare job market.